DESIGNS: Doable Engineering Science Investigations Geared for Non-science Students

ABSTRACT 9452767 Sadler This proposal is to research, develop, and test six modules based on engineering projects for middle school students. These materials aim at inclusion in introductory physical science courses, but may also be used for general science and after-school or other informal teaching situations. Topics include mechanics, electricity, and chemistry. A team of experienced middle school physical science and technology education teachers, research engineers, and scientists produce effective, up-to-date, activity-based, middle school physical science materials dealing with "designing to constraints." The materials are evaluated to determine their effect on students' involvement and interest in pursuing technical careers as well as changes in their aonceptual understanding and science process skills. A particular focus of the evaluation is the impact of the project strategies on urban underrepresented minorities and girls, many of whom have little experience with, or show fear of, mechanical devices. Dissemination is through a series of summer institutes, workshops at teacher conferences, and journal articles. A commercial publisher is to market the product.